The Bias Toward Omissions: Causes, Effects on Public Decisions, Individual Differences and Debiasing

Prior work indicates that people are often biased toward omissions. This proposal examines this bias. One hypothesis is that people ignore the consequences of inaction and they compare the consequences of action to the status quo. This research also examines the conditions under which omission bias occurs, its effect on judgements about public decisions (such as global warming), its relation to other effects such as the status-quo effect, the sunk-cost effect and the extra-cost effect; individual differences in omission bias and related biases, how people might be debiased, i.e., persuaded to ignore the distinctionh between acts and omissions when it is irrelevant and why they sometimes resist such persuasion. Questionaires will be given to students, museum visitors, and citizens who are particularly concerned about the issues addressed. The results could inform discussions of public policy concerning a variety of issues, such as environmental risks, valuation of public goods, vaccinations and withdrawal of life-sustaining medical treatment.